SGER Grant: A Conference to Strengthen Mathematics and Science Education Through Indigenous Knowledge and Ways of Knowing

We propose a three-phase plan to gather and document novel thinking about the role of
community in determining and supporting effective mathematics and science education in
indigenous communities. We will convene an eclectic international group of innovators who
have developed deep sensibilities about the social ideals, values, and behavioral standards that
have shaped local approaches to successful schooling in mathematics and science. Each member
will have a depth of experience thinking .outside the box. and creating successful innovations
that make a meaningful difference in real communities. This shared experience of striving to
develop solutions (against the odds) forms a common thread that we believe will help
participants interweave their perspectives and intentions as a group.with a focus on articulating
a set of truly transformative ideas about how community involvement in indigenous education
can help all children learn mathematics and science.
In Phase I, a small but representative international Working Group of primarily
indigenous mathematics and science educators and researchers will convene in a five-day long
institute. Deliberations will center on the role of community in determining and supporting
education by navigating tensions among traditional/western mathematics and
science/knowledge/approaches, culturally responsive curriculum, teacher preparation/cultural
orientation, language revitalization and language maintenance, the indigenous research agenda,
alternative assessment models, and technical assistance/support structures. Participants will
report on their own work and come together for in-depth discussions in smaller work groups
around specified sub-themes. By the end of the meeting, the Working Group will develop an
agenda and plan of action that will guide future activities.
In Phase II, a nominated council of up to four individuals from the Working Group, will
attend selected national meetings in mathematics, science, and indigenous education, and via a
series of interactive workshops, panels, and/or individual presentations, introduce the Working
Group.s vision and agenda, and elicit contributions from educators and community members
similarly engaged in community-driven education.
In Phase III, two members of the Working Group will attend the triennial World
Indigenous People.s conference, which hosts peoples from around the world who are committed
to achieving reform and transformation of education. Working Group participants will offer
workshops at this conference and seek counsel and input from this further extended group
involved in like-minded efforts. A web-based interactive community will remain in place during
all phases of the work to facilitate ready connection and communication.

Intellectual Merit: A growing group of knowledgeable mathematics and science educators and
others who will continue to work toward defining indigenous ways of knowing and educational
philosophies, inspire growing dialogues in uses of indigenous knowledge in schooling, and
stimulate increased integration of indigenous knowledge in educational curriculum.

Broad Impacts: Learnings will contribute to the emerging international body of scholarly work
that delineates ways in which local cultural context fosters academic success in mathematics and
science for all students.